SBIR Phase I: Work-Centered Application Development through Patterns

This Small Business Innovation Research Phase I project will address the skill gap that
exists within the software development community in the production of work-centered
software. To this end, Stottler Henke will develop a novel software development
environment that reduces the complexity of interaction design – bridging the gap
between the analysis of the work domain and the development of well-designed supporting
software. The proposed WorkWell system will provide for an enhanced Contextual Design
process with tools that enable software developers to draw on the aggregate experience of
other work-centered application designers. This will be achieved through the application
of proven design/interaction patterns that will, for instance, enable software developers
to resolve the conflicts between the desire for automation and user’s need for a
feeling of control. Further, WorkWell will support an incremental process for mapping the
semantics of user goals to underlying software functionality and the user interface
design. Phase I will result in a limited prototype that will demonstrate the feasibility
of the proposed approach. The results of these efforts will have a great impact on
society – furthering the understanding of work-centered design and enabling
corporations to produce software that will enjoy higher user adoption rates and improve
efficiency.
There is a large market for tools that can improve the efficiency and effectiveness of
software development efforts. The WorkWell system offers corporations the means to
produce intuitive and effective software under the time and resource limitations that
exist in the commercial world and thereby achieve much higher user adoption rates for
their products.